Automatic Verification of Finite-State Concurrent Systems in Hardware and Software

Logical errors in sequential circuit designs and communication protocols have always been an important problem. They can delay getting a new product on the market or cause the failure of some critical device that is already in use. The most widely used method for verifying such systems is based on extensive simulation and can easily miss significant errors when the number of possible states is very large. This research deals with developing an alternative approach based on a technique called temporal logic model checking. In this approach specifications are expressed in a propositional temporal logic, and sequential circuits and communication protocols are modeled as state transition systems. An efficient search procedure is used to determine automatically if the specifications are satisfied by the transition system. The technique has been used in the past to find subtle errors in a number of non-trivial designs.